Travel: NSF Student Travel Grant for the 2025 Privacy Enhancing Technology Symposium (PETS'25)

This award supports student travel for about 15 U.S.-based students to attend the 2025 Privacy Enhancing Technology Symposium (PETS) in July 2025. PETS is a leading venue for cutting-edge research that addresses the design and development of privacy services for the Internet, as well as other data systems and communication networks. The symposium brings together anonymity and privacy experts from around the world to discuss new perspectives and recent advances around privacy. This travel award will enable a number of students with financial need to attend the conference, providing them the opportunity to discuss leading edge research with world-class computer researchers in privacy, and establish professional connections and mentoring relationships that will serve them well during their research careers.

This grant provides travel support to encourage participation in the 2025 PETS conference by students who would normally find it difficult to attend. The organizers will widely advertise the availability of funding and encourage applications by students from groups under-represented in computer security. Criteria for selection include evidence of a serious interest in the field, as demonstrated by research output, coursework and/or project experience; financial need; and, among qualified candidates, a breadth of institutional, disciplinary, topical, and personal backgrounds. Selected students will be invited to volunteer at the conference; student volunteering provides additional opportunities to meet other volunteers in their cohort as well as senior researchers in the field.